Metabolomics-Guided Explorations of Wastewater Comamonas for Mixed Conversion of Aromatic Carbons in Lignin and Plastic Wastes

Municipal and agricultural wastes can be turned into useful products through biotechnology. A key challenge is breaking down tough-to-digest components, including plastics and plant biomass in the waste. These components often contain stable ring-shaped structures, such as polystyrene and polyethylene terephthalate in plastics and lignin in plants. Some bacteria found in wastewater can break down these structures. For example, Comamonas species from wastewater can metabolize compounds that contain such ring structures in plants and plastics. These bacteria also have metabolic pathways that can produce polymers with industrial value. This project will use a combination of experimental techniques and modeling to understand the metabolic reactions in wastewater Comamonas. The goal is to use these reactions to convert mixed waste streams into valuable products.

Biotechnology platforms that can leverage the natural capabilities of wastewater Comamonas to process aromatic structures could be critical in overcoming the biochemical challenges to achieve biological conversion of hard-to-digest plant woody biomass and plastic polymers. However, metabolic reactions in Comamonas species have remained largely unexploited, due to limited knowledge of the operation of the metabolic network. This project will test the hypothesis that native reactions in relevant biosynthetic pathways will be controlled by constraints established by the interplay between carbon metabolism and energy metabolism for processing specific aromatic structures of lignin and plastic derivatives to product biosynthesis. Focusing on Comamonas species isolated from waste sludge, the four research objectives will be to (1) elucidate the pathways for the metabolic of aromatic structures derived from lignin, polystyrene, and polyethylene terephthalate; (2) characterize pathways for biosynthesis of different oligomer and polymers naturally produced by these species; (3) employing computational algorithms and high-performance computing for modeling of the complex network of coupled carbon and energy fluxes for aromatic structure conversion to product biosynthesis; and (4) achieve targeted engineering of the metabolic network for optimized substrate metabolism and enhanced product biosynthesis from aromatic mixtures derived from lignin and plastics. The project will combine high-resolution mass spectrometry-based metabolomics, stable isotope tracers, kinetic isotopic flux profiling, proteomics, analytical chemistry, and metabolic flux modeling to unravel the natural metabolism of wastewater Comamonas species for valorizing complex waste mixtures containing lignin, polystyrene, and polyethylene terephthalate. The long-term goal of this research will be the quantitative explorations of the complex metabolic network in non-model microbial hosts to innovate biotechnology platforms for conversion of complex wastes to valuable product biosynthesis. The project will design interactive lecture workshops for middle-school STEM programs in Chicago area and provide new training opportunities for undergraduate and graduate students at the interface of environmental engineering, systems biology, and multi-omics.